Understanding High-Density Matter Through Analysis of X-ray Bursts

AST-0098436
Miller

Observations of neutron stars are a principal way of investigating the properties of ultra-high density matter at densities several times that of the atomic nucleus. This research program of Dr. Cole Miller, at the University of Maryland, is directed towards a careful analysis of timing and spectral data from the brightness oscillations seen during X-ray bursts, The ultimate aims of the project are to constrain the equation of state and to understand thermonuclear propagation in neutron stars. Observations made with the Rossi X-ray Timing Explorer satellite, the Chandra X-ray Observatory and the European X-ray Multi-Mirror satellite will be analyzed during the course of the project.
***